National Education Infrastructure and Delivery System (NEIDS) for Science and Mathematics Education

The National Research Council will convene a committee to explore the merit and feasibility a national infrastructure of resources capable of delivering to teachers and schools the intellectual and material resources necessary to sustain systemic reforms in science and mathematics education. The committee, working as a whole and in focus sessions, will include the perspectives of scientists and mathematicians, science and mathematics education reforms, and others who understand the opportunities, barriers, and most promising strategies needed to mount and sustain mathematics and science education programs aligned with national goals and standards. The NRC Committee will address the central questions related to the merit and feasibility of a national system to help teachers and schools achieve the national standards in mathematics and science education. The NRC Committee will explore central issues regarding the most promising "delivery system' and infrastructure"' composed of federal, state, and local governmental and nongovernmental resources--agencies, institutions, organizations, and individuals. A final report with recommendations is expected in early 1993.